International Research Fellow Awards Program: Controls on Biogeochemical Processes Along a Contiguous PrecipitationGradient in the Patagonian Region of Argentina

9600387 Austin The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Amy T. Austin to work with Professor Osvaldo E. Sala at the Universidad de Buenos Aires in Argentina. Dr. Austin and Professor Sala will be doing research on controls on biogeochemical processes. They will establish a set of experiments along a Patagonian precipitation gradient in the range from 100 mm to 2000 mm annual rainfall at the latitude of 45 degrees S at Rio Mayo. They will establish five sites in the different vegetation types of desert, steppe, grassland, open and closed forest. In each of the sites they will measure the above ground net primary productivity (ANPP), decomposition, and soil nutrient availability, in an effort to understand the effect of changing water availability on carbon and nutrient cycling. An understanding of the effect of the processes could be a fundamental step toward ameliorating human-induced desertification. ***